Arthur M. Sackler Colloquium: The Science of Science Communication II

The National Academy of Sciences is proposing a three-day Sackler Colloquium on the Science of Science Communication to be held in September 2013. This conference, which will build upon the themes of the colloquium held in 2012, will bring together communication researchers, scientists, and science communication practitioners to foster interdisciplinary discussion and promote the understanding and use of research in confronting science communication challenges of national import. Prominent communication researchers will cover subjects such as "Belief and Attitude Formation about Science Topics," "Communicating Uncertainty," "Influences of Social Networks", and "Narratives in Science Communication" during the first two days of the conference. Concurrent workshops on four topics of national interest will comprise Day Three.

The meeting will be held at the National Academy of Sciences, and will be webcast live as well as archived. The proceedings of Days 1 and 2 will be published in a special issue of the Proceedings of the National Academy of Sciences. In addition, written summaries of the research results and communication recommendations from the workshop on Day 3 will be distributed free on the National Academies website to highlight the importance of the role of research in effective science communication.

Goals of the colloquium are to generate an appreciation of the power of social science research to guide more effective communication of STEM (Science, Technology, Engineering, and Mathematics) to help identify the gaps in communication research, and to promote sustained STEM communication programs. The colloquium will highlight the importance of the role of research in effective science communication, and strengthen understanding, appreciation, and collaboration between disciplines. It will also further strengthen the bridge between communication research and practice with the goal of improving the science of science communication.